Isospectrality: Length vs. Laplace Spectra and Isospectral Families

Project Abstract - Ruth Gornet - DMS-0204648

This proposal addresses several topics in inverse spectral
geometry. In the first project, the Principal Investigator will
show that the classical trace formula, which relates the Laplace
and length spectra for generic manifolds, provides less
information about isospectral manifolds than was previously
speculated. In joint work with P. Perry, the wave trace on
Heisenberg manifolds will be explicitly calculated in order to
understand the behavior of the length vs. Laplace spectra.
Additionally, a new notion of length spectrum will be studied in
order to prove a necessary condition that lengths of closed
geodesics on isospectral manifolds must satisfy. A further project
(joint with J. McGowan) studies the p-form spectrum on lens
spaces. The Principal Investigator has constructed examples of
lens spaces whose p-form spectra are equal for certain p but with
unequal spectra on functions. This behavior will be further
studied toward constructing p-isospectral lens spaces with unequal
absolute length spectrum; i.e., different lengths of closed
geodesics. In the final project (joint with R. Brooks) tools from
representation theory of the symmetric groups will be used to
construct an explicit upper bound on the number of isospectral
Riemann surfaces of a fixed genus that can be constructed from the
Sunada method. When this final project is completed, an explicit
upper bound on the number of nonisomorphic number fields with a
given zeta function will result.

In 1966, Mark Kac popularized the question, "Can one hear the
shape of a drum?" The mathematical formulation of this question
is: ``What geometric information is contained in the spectrum of a
Riemannian manifold?'' Isospectrality, i.e., the study of
isospectral families and/or the geometric properties they may or
may not share, impacts areas outside of spectral geometry; the
research funded by this proposal thus supports the
pure-mathematical foundations of these areas. The first examples
of closed isospectral manifolds, Milnor's flat tori, have appeared
in string theory in physics (related to mirror symmetry). The
empirical science of spectroscopy has studied frequencies of atoms
and molecules to provide information about vibrating objects.
Inverse spectral problems also arise in medical imaging,
geophysical prospection, and non-destructive testing.